NSF Young Investigator - Computer Simulation of Human Move- ment.

This NYI award will fund research in the area of computer simulation of human movement. The research will focus on methods to scale nominal models of the lower limbs to arrive at accurate estimates of the moment arms of various sized individuals. The predictions will be verified using cadaver measurements. Similar scaling studies for children will be based on MRI measurements and also verified through cadaver studies. These scaling studies are important since movement simulations require accurate estimates of moment arms. The model also will be used to simulate a number of surgeries including tendon transfers, osteotomies, and joint replacements. The NYI award also will help the investigator create a teaching laboratory that focuses on biodynamic simulations. Three courses based on the simulation laboratory; namely, Biomechanics of Movement, Biodynamics Simulation Laboratory, and Advanced Biodynamics, will be developed.